Research Experience for Undergraduates in Physics

The University of Illinois Department of Physics Research Experiences for
Undergraduates program provides research opportunities in a variety of
physics sub-fields. About half of the participants are from colleges and
universities other than UIUC, and the other half are Illinois students
participating in our senior thesis course sequence, although all
participants are involved in the same activities. Activities outside the
laboratory focus on communication skills and expose participants to a wide
variety of physics disciplines. During the ten-week program, students are
required to give oral presentations and write a journal-style paper about
their research project. Workshops are conducted on how to give effective
presentations, how to write a scientific paper, and ethical conduct of
research (new in Summer 2003). Participants attend weekly lunch meetings
with a faculty member, who discusses recent progress and open problems in
his or her research area. Optional social activities and field trips are
also arranged.